Directorate for Computer and Information Science and Engineering (CISE) Research Experiences for Undergraduates (REU) Principal Investigator Meeting

EIA-0307461
S. Shankar Sastry
University of California-Berkeley

The PI meeting will occur for the entire day of Friday, January 10, 2003. This PI meeting will be modeled on the one convened in Orlando, Florida, on January 14, 2002. The purpose of the one-day meeting is to bring together the Principal Investigators from around the country to discuss the intellectual merit of undergraduate research programs, report on their respective REU sites, share ideas with other PI's and discuss both challenges and successes.